Scheduling with Flexible Resources

The proposed research is designed to enhance the efficiency of and competiviness of manufacvturing firms by broadening the scope of the production scheduling function to include not only the sequence of work, but also the coordination of all resource inputs (e.g., different types of skilled labor and support equipment) required to process work. Recognizing that certain resource types are inherently flexible (i.e., they can migrate to processors as needed) and that job operaton times often depend directly on the amount and mix of resources dedicated to tasks, the investigators formulate the flexible- resource scheduling problem with the objective of simultaneously determining the job sequence and resource allocaton policy that optimize a chosen measure of system performance. General Dynamics will be their collaborator.